Science, Technology, Engineering and Mathematics Scholars Teacher Academy Resident System

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.

This project at Jackson State University will investigate the effectiveness of a teacher academy resident model to recruit, license, induct, employ, and retain middle school and secondary science and mathematics teachers for high-need schools in the South It will prepare new, highly-qualified science and mathematics teachers from historically Black universities in high-needs urban and rural schools. The project involves a partnership among three historically Black universities (Jackson, State University, Xavier University of Louisiana, and the University of Arkansas at Pine Buff), and diverse urban and rural school districts in Jackson, Mississippi; New Orleans, Louisiana; and Pine Bluff Arkansas region that serve more than 175,000 students.

Participants will include 150 middle and secondary school teacher residents who will gain clinical mentored experience and develop familiarity with local schools. The 150 teacher residents supported by the program to National Board certification will obtain: state licensure/certification in science teaching, a master’s degree, and initiation. The goal is to increase teacher retention and diversity rates. The research question guiding this focus is: Will training STEM graduates have a significant effect on the quality of K12 instruction, teacher efficacy and satisfaction, STEM teacher retention, and students’ science and mathematics achievement? A quasi-experimental design will be used.to evaluate project's effectiveness.